Lipid Influences on Membrane Protein Folding and Oligomerization

Engelman
MCB 9905671

This research is aimed at providing a connection between the subjects of membrane protein structure, folding and oligomerization on the one hand, and lipid bilayer properties on the other. The approach is to measure helix-helix association-dissociation equilibria in lipid bilayers and in membranes, observing changes in the dissociation constant resulting from changes in the lipid environment. General effects, such as those arising from bilayer thickness and cholesterol content, and specific lipid association effects, in which dilute quantities of a lipid in a bilayer have disproportionate effects on the helix dissociation will be investigated. Two key assays are Forster Resonance Energy Transfer and a new genetic assay for helix association. These will allow studies in synthetic lipid bilayer vesicles and in the inner membrane of living E. coli, respectively.

These studies are relevant to such important areas as transmembrane signaling events (which often involve changes in helical membrane association), selective transport in membrane trafficking (where evidence suggests bilayer thickness effects to segregate retained and transported proteins in cytoplasmic compartments), and modulation of many membrane functions. A fundamental understanding of the principles of membrane protein folding should also prove enlightening in attempts to interpret
information in genomic databases.